Citizen Science: Development and Dissemination of a Model for Program Developers

Citizen science projects engage members of the general public in professionally directed research and participatory action research projects that investigate local environmental issues. The Cornell University - Laboratory of Ornithology is requesting funding to support a national conference and the development of a web-based Citizen Science Toolkit to inform these programs. The Toolkit will provide a framework for scientists and educators to develop, implement and evaluate independent citizen science projects. Deliverables include an invitational conference where best practices will be identified, in addition to the electronic toolkit that will include a Citizen Science Manual and instruments for assessing the effectiveness of projects. A virtual community of educators that develop and implement citizen science projects in a variety of STEM areas will be created. It is anticipated this work will improve the quality of citizen science projects across the country.